MRI: Applications of Remote Sensing to Island Wake DynamicsBarbados

Analysis of remotely sensed data, both CZCS and AVHRR will be used to describe the eddy field in the wake of Barbados Island. These analyses will be combined with in-situ physical oceanographic data to investigate the dynamics of the island- generated eddies. Finally this information will be combined with concurrently collected samples of the reef fish to investigate mechanisms for retention near the island.